Brandeis Summer Odyssey Young Scholars Project

Brandeis University will initiate a 4-week, multidisciplinary, residential Young Scholars project which will be a component of the Brandeis Summer Odyssey Program for high school students. This project will provide full, need-based scholarships to 30 students in grades 10- 11. The Brandeis Summer Odyssey Program is designed to encourage young people to pursue their interests in science by introducing them to unique academic and career options. This is accomplished through class and laboratory work, a lecture series, field research and trips, and interaction with leading research scientists.